Radioactivity and Environmental Security in the Oceans: New Research and Policy Priorities in the Arctic and North Atlantic

9317438 HOLLISTER This conference on radioactivity and environmental security in the Arctic and North Atlantic oceans brought together scientists from nine countries. This goal was to share data and to initiate collaborative efforts concerning research on the environmental impacts of radioactive dumping activities. Russian scientists attended, leading to the production of a scholarly policy/economic review of the impact of Soviet nuclear dumping. ***